SGER: Initial Prototype of an Optical Multi-Processor Interconnect

This project is for the development of the initial prototype of one of the nodes of an optoelectronic interconnection network ultimately capable of reaching terabyte-per-second capacities. Such a network is a crucial component in a future teraflop, distributed processing system. The required capacity is reachable through innovations in architecture, further development of a few devices that have been demonstrated, and careful systems integration. This project describes the first stage in the development of a single-word transmission, multiply-connected network, ultimately capable of delivering and extracting a sustained average rate of a few 10s of Gb/s from many 100s of electronic hosts simultaneously. The electronic hosts would be at multiway low-latency optical switching nodes separated by a few meters to 10s of kilometers. The techniques to be used are a hot- potato self-routing protocol with no opto-electronic conversion, a minimum-depth and physically flexible topology, optical packet compression by optical wavelength and microwave subcarrier- division multiplexing per word, optical amplification, multiwavelength optical switching, and multitechnology opto- electronic integration and packaging. The principal innovation is to architect and engineer a system that exploits these strengths simultaneously. A large multi-year project will be staged as a series of mutually dependent, increasingly sophisticated system demonstrations and device development efforts. This project will construct the first rudimentary demonstration of the node in a few months with (nearly) off-the-shelf components.